Purchase of a 400 MHz Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Wayne State University acquire a 400 MHz NMR spectrometer which will be used in research by six major users engaged in chemical synthesis. Of the six programs, four have active NSF grants. Four of these organic chemistry projects involve the stereospecific synthesis of natural product analogs of bioactive molecules which will require high field NMR to characterize complex products. One of these will also use NMR to determine the structure of natural products isolated from marine organisms. The inorganic project will use variable temperature and multinuclear NMR to characterize new organometallic species and reactions. The sixth project will use variable temperature NMR to study the kinetics of free radical reactions. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.